Acquisition of an Inductively Coupled Plasma-Mass Spectrometer (ICP-MS) for the Enhancement of Interdisciplinary Research and Research Training

This award from the Academic Research Infrastructure (ARI) Program will assist the Department of Chemistry at Lawrence University acquire a inductively coupled plasma-mass spectrometer (ICP-MS). This equipment will enhance research in a number of areas including the following: (1) evolution of the Galapagos Island Chain (2) late quaternary history of the Lake Winnegao Basin East-Central Wisconsin (3) recent anthropogenic effects on the Lake Winnebago Basin (4) investigation of electronic and vibrational band structure of the semiconductor Ge1-(x)Snx, and (5) zooplankton nutrient supplies in freshwater and marine environments. Inductively coupled plasma-mass spectrometry (ICP-MS) is an analytical technique that uses a high temperature discharge generated by inducing a magnetic field in a flowing conducting gas to determine with high precision, quantitative multi-elemental analysis. It is used in interdisciplinary fields including environmental science, material science and geochemistry for high quality elemental analysis.